Physiological Aspects of Teleost Oocyte Growth as Exemplified in Fundulus

The killifish, Fundulus heteroclitus, naturally spawns in Northeast Florida salt marshes with semilunar periodicity throughout most of the year. In addition, during the biweekly 3-to 4-day periods of spawning, killifish only spawn once each day coincident with the highest tide. Since killifish oocytes are periodically recruited, grown, and ovulated as eggs in preparation for this spawning activity, this animal can thus serve as a superb model for periodic female reproductive activity. Gonadotropins secreted by the pituitary are thought to directly regulate essentially all ovarian activity. The PIs will purify gonadotropins from killifish pituitaries so that they can prepare antibodies against them. Then, by using appropriately labeled antigonadotropin antibodies, the PIs plan to identify which cells in the pituitary synthesize and secrete each identified gonadotropin and when this occurs; the PIs will also be able to measure gonadotropin levels in the bloodstream and discover whether or not these levels are constant or cycling. This should allow the PI to correlate each type of gonadotropin with specific ovarian events. Specific ovarian events will also be studied in order to better understand how the various cells of the ovary respond to circulating gonadotropin.